Acquisition of a Field Emission Electron Microprobe for Geological Analysis

For more than 40 years, electron probe microanalysis (EPMA) has played a central role in the on-going research activities at the Carnegie Institution of Washington. Carnegie staff, postdoctoral fellows and external collaborators utilize EPMA for a wide range of scientific research, such as analyzing natural and synthetic samples to understand the chemistry of Earth and the geological processes that have formed it and related planetary materials. This award will permit the acquisition of a state-of-the-art field emission (FE) electron microprobe system to conduct automated, high resolution, quantitative elemental microanalysis, multi-spectral imaging, and low-energy x-ray emission measurements that will improve scientific throughput and enable future cutting-edge research.

The system is designed for high productivity and reliability, with easy operating procedures that enable precise and sensitive in situ analyses by researchers of variable skill levels. It will be housed in a user-friendly facility, with a dedicated facilities manager, that will be utilized by staff, postdoctoral fellows, visiting scientists, graduate students, and summer interns at Carnegie. The instrument will have significant impact on the research programs in a number of fields including experimental petrology and geophysics, high-pressure physics and mineral physics, inorganic geochemistry, solar system origins, and astrobiology, thereby promoting interdisciplinary collaborations.